Student Travel Support for the 2026 Inaugural African Control Symposium (AFCONS 2026); Mbour, Senegal; 14-16 July 2026

This grant supports disciplinary growth and professional networking for the next generation of US researchers in control systems, automation, and robotics. The award will defray expenses for six US-based graduate students to travel to the Inaugural African Control Symposium (AFCONS 2026). Africa is undergoing rapid technological and economic transformation, and represents an important source of new ideas and future partnerships. This meeting is the first in what is intended to be a biennial series, to foster communication and to disseminate new research results between controls researchers at US, African, and International institutions. The event will benefit US controls researchers by introducing new critical application areas and by demonstrating US technical leadership to the African and International community. These activities will be particularly impactful for early-career students and faculty, and can be formative in shaping long-term intellectual trajectories, on-going collaborations, joint research projects, co-advising, and sustained institutional relationships.

AFCONS 2026 will be held on 14-16 July 2026, in Mbour, Senegal, to bring together leading researchers, students, industry innovators, and policymakers from across Africa and the world. AFCONS is dedicated to advancing control science and engineering, fostering technological innovation, and creating enduring partnerships that will contribute to Africa's scientific and technological transformation for generations to come. AFCONS 2026 will feature plenary lectures, technical sessions, student participation, demonstrations, and networking opportunities covering control systems, robotics, optimization, machine learning, and autonomous systems. This award will support attendance by six US-based graduate students, selected through a competitive, merit-based review process conducted by symposium co-organizers.